Investigation into Faulty and Incomplete Message-Passing Parallel Computers

9300075 Tzeng In a message-passing architecture, in the presence of faults, it is desirable to retain as many workable nodes as possible during reconfiguration, achieving maximum reconfiguration. This research investigates the maximum reconfiguration of faulty hypercube, CCC, and mesh systems, and explores challenging communication and performance related issues in incomplete multicomputer systems. ***